Algebraic Geometry and Computational Algebraic Geometry for Image Database Indexing, Image Recognition, and Computer Vision

9508742 Stiller The University-Industry Cooperative Research Programs in the Mathematical Sciences are programs designed to establish a mechanism for exchange of mathematical scientists between academia and industry at different stages of their careers. These programs will strengthen the links between industry and academia and identify and encourage new avenues of research in the mathematical sciences. The University-Industry Postdoctoral Research Fellowships provide two years of support for recent recipients of doctoral degrees in the mathematical sciences. These awards are a means of contributing to the future vitality of the scientific effort of the nation. The postdoctoral fellow will work closely with scientific advisors from both academia and industry. The Postdoctoral researcher will be engaged in a joint research effort that unites researchers at Texas A&M University with a group at the David Sarnoff Research Center in Princeton, New Jersey. The research will focus on the application of techniques in algebraic geometry, notably geometric invariant theory, and computational algebraic geometry to problems in image recognition, image database indexing for content-based retrieval, and computer vision. The fellow will do original research to develop a theory of equivariant correspondences coming out of questions motivated by problems in relating 3- D objects to 2-D images and vice versa. The work will involve the design of algorithms to implement the results, as well as an analysis of their robustness with respect to geometric variation.